Trophic Coupling Between Mesopelagic and Sea-Ice Communities in the Weddell Sea

The discovery of deep-sea fish in the stomachs of surface-feeding seabirds foraging in open areas of pack ice has presented the surprising possibility of prey-predator coupling between two apparently disjunct communities. Although many of the deep-sea species found in birds stomachs are known to migrate vertically on a daily basis, most have not been caught at depths of less than 100 m in open waters away from the ice, while the seabird species sampled are not known to forage deeper than 5 m. This prey-predator coupling is intriguing but difficult to address with conventional methods because of the many problems associated with sampling in pack ice. As a first step in examining the interaction between the under-ice mesopelagic (100 to 1000 m) and epipelagic (surface to 100 m) communities, scientists propose to use moored, upward-looking hydroacoustic instruments to compare the distribution, abundance and movements of acoustically -detectable deep-sea fish in the epipelagic of the water column at two stations in the Weddell Sea, one in the pack ice and one in the ice-free area to the north. Three null hypotheses will be addressed: 1) the vertical distribution of acoustically-detectable fish in the epipelagic zone is the same in ice-free and ice-cover regions; 2) the abundance of acoustically-detectable fish in the epipelagic zone is the same in ice-covered and ice-free oceanic regions; and 3) the movements of acoustically-detectable fish in the epipelagic zone are the same in ice-covered and ice-free oceanic regions. This research constitutes a short-term feasibility study. If hydroacoustic techniques prove successful, scientists will then propose a more comprehensive, long-term study to quantitatively examine prey-predator links between deep-sea and sea-ice fish and bird communities. Given the broad extent of oceanic ice cover and the wide dispersal capabilities of the extensive seabird populations in polar seas, scientists expect such links to be important in the overall cycling of carbon in polar regions.